Interagency Working Group on Data Management for Global Change (IWGDMGC)

This is an interagency transfer that provides NSF's share of the support for activities of the Interagency Working Group on Data Management for Global Change. The activities cover (i) a Data Forum (ii) the development of a technical evaluation of the national data and information system required for global change research, (iii) and support for the National Academy of Scienc es Committee on Geophysical Data. Preparing, archiving, and disseminating data and information products for global change research is a critically important element of the US Global Change Program.